Collaborative Research: Deformation Processes in the Central Andaman Islands

The Mw=9.3 Dec 2004 Sumatra earthquake ruptured 1000 miles of
India's eastern plate boundary causing damage in the Nicobar and
Andaman islands, shifting them bodily 3m-7m southwestward, and
tilting them down to the east. Although shaking damage in the
Andaman and Nicobar islands was minor, the tilting caused massive
damage to coastline ecologies. Thousands of hectares of agricultural
land were flooded, and erosion of forested shorelines has commenced
in regions that sank. Hundreds of km of coral reefs were killed where
the land rose, with attendant loss of nearshore fishing grounds. Yet
clearly this was not the first time that this has occurred, and it
is certain that it will occur again.

Several societal questions arise. How frequently do these
catastrophic tsunami earthquakes occur? Are the flooded islands
permanently drowned or will they slowly recover their former levels?
Will the saline intrusion and flooding of shoreline farmland be
reversed or worsened in the coming decades. Will harbor defenses
and docks require extended construction to accommodate additional
submergence or emergence. In what way does the Sumatra earthquake
resemble a similar Mw=9 expected in the Pacific NW of the US? What
can be learned from the Sumatra earthquake that has application to
the coasts of Oregon and Washington?

These questions can be answered from a geophysical knowledge of the
subsurface process involved in the Sumatra/Andaman event. Near Port
Blair, where most of the people of the Andaman/Nicobar islands live,
the plate boundary accomodates both northward motion of India and the
westward motion of the Andaman plate: every 100 years it accommodate
s roughly1 m of northward motion and 4 m of convergence. All this
motion occurs infrequently in earthquakes, yet it is driven by slow
interseismic processes.

Scientists from Memphis and Colorado are investigating continued
movements in the Andaman islands using Global Positioning geodesy and
sea level monitoring devices to find out whether these catastrophic
changes are increasing or decreasing. The spatial variation of these
effects with time provides unique constraints on the continuing
processes in the islands. Their initial results indicate that
although the islands continue to move SW some of the subsidence has
been reversed. In this two year project they hope to provide many
hundreds of points to constrain future motions, and to answer how
frequently these earthquakes occur.

One of their objectives is to show local scientists how to undertake
these kinds of measurements. Strong collaborative agreements have
been established with scientists affiliated with the Society for
Andaman and Nicobar Ecology (SANE) who have access throughout most of
the islands.